NSF Conference in the Mathematical Sciences on Functional Data Analysis

Proposal ID: DMS-0229028
PI: Casella
Title: Conference on Functional Data Analysis

The Department of Statistics at the University of Florida hosts its Fifth Annual Winter Workshop on January 10-11, 2003 in Gainesville, Florida. The workshop focuses on recent developments in functional data analysis (FDA), which is emerging as one of the most important new statistical methodologies with diverse applications in all areas of statistics ranging from image analysis to bioinformatics. The workshop provides a forum for interaction between theoretical developments and advances in applications of FDA methods. Besides the impact on development of human resources, the workshop will generate an impetus for the wider dissemination and use of functional data analysis techniques. In addition to invited sessions, the conference will include a contributed poster session.